The Influence of Spatial Subsidies, Temporal Variation and Predation on Dynamics of Insular Rodent Populations

PI: Gary Polis Institution: University of California - Davis Proposal Number: DEB - 9806657 The dynamics in one habitat can sometimes be dramatically influenced by factors from a second habitat. This proposal will examine how resources from one habitat can influence consumers in a second habitat, specifically how materials produced in offshore marine habitats affect terrestrial communities near the Gulf of California. It would particularly address how El Nino related changes in rates of terrestrial production effect long-term patterns in these inter-habitat transfers of materials. It will focus on rodents as potential consumers of marine-generated resources and document their inter-annual population responses and movements relative to changes in the relative availability of resources from marine and terrestrial habitats. It will examine the extent to which rodents use marine resources and how far inland rodents may transport such materials. It will test the extent to which rodents are influenced by marine resources relative to terrestrially produced resources and how the relative use of these two sources changes with El Nino related climatic phenomena. It will also examine the nature of resource-based vs. predator-based controls on rodent populations and examine any links between the resource availability in the marine habitat and the dynamics of the terrestrial habitat. This project will provide basic information on how processes in one habitat can influence nearby habitats and how these interactions can be influenced by global climatic events. It will also provide important natural history information on a series of islands in the Gulf of California several of which have endemic rodent species.